SBIR Phase I: Nonintrusive Diode Laser Sensor for Bottled Drugs

This Small Business Innovation Research (SBIR) Phase I project is designed to assess the feasibility of developing a nonintrusive diode laser sensor for oxygen contamination in drug product bottles. In this project, designs for overcoming problems associated with ambient oxygen signals and optical interferences due to etalons will be examined. In addition, the sensitivity and accuracy of the proposed technique will be demonstrated. Lastly, a preliminary examination of the possibility of performing measurements on the production line will be made.

If successful, this technology will be extendable to nonintrusive measurements in a variety of packaged and bottled food and drug products.